Genetic Regulation of Streptomyces Antibiotics

Streptomyces are well-known for their capacity to synthesize a vast repertoire of secondary metabolites (antibiotics). Besides their commercial importance, the Streptomyces are interesting for their complex developmental cycle. In the course of this life cycle, antibiotic synthesis is developmentally regulated. The objective of this research is to define aspects of the global genetic regulation of Streptomcymes coelicolor antibiotic synthesis. The research planned is based on a set of genes, recently discovered in this laboratory, which regulate the expression of antibiotic genes. The goals include genetic and molecular characterization of the absA, absB and mia genes; study of the regulation of absA, absB and mia using reporter gene fusions, and investigation of the mechanism by which these genes globally regulate antibiotic synthesis. %%% This molecular genetic analysis of the abs and mia genes promises to contribute not only to our understanding of microbial developmental gene regulation, but also to biotechnology. Understanding of S. coelicolor regulation is highly likely to explain much of antibiotic regulation in other Streptomycetes and Actinomycetes, and this increase the potential for rational manipulation of production of commercially important metabolites including the many new metabolites that are continuously being discovered.